UBM: An Interdisciplinary Program in Mathematical Biology at New Mexico State University.

Boecklen
The investigator and colleagues develop an interdisciplinary
program in mathematical biology at New Mexico State University
that exposes biology and mathematics students to ongoing research
at the interface of biology and mathematics, and that enhances
the training of undergraduate students in mathematical biology.
They develop new courses in mathematical biology, establish an
intensive mentorship program that involves hands-on research
experience (field, laboratory, and computers), and develop
supplemental materials for undergraduate biology courses that
promote mathematical skills and critical thinking. They generate
three research projects suitable for undergraduate participation:
endophyte mediation of tri-trophic interactions in Gambel's Oak,
evolution of virulence in environmentally transmitted parasites,
and a chemostat model for metapopulation dynamics.
The project supports undergraduate training at New Mexico
State University, an institution with large enrollments of Native
American and Hispanic students and that is officially recognized
as a Minority Serving Institution. In addition, the project
integrates research and education within the mathematical and
biological sciences and serves as a springboard for the
development of an interdisciplinary program in mathematical
biology. It contributes directly to the training of young
scientists and mathematicians by supporting a graduate student
and four undergraduate students over two years, and by
interjecting cross-disciplinary elements into the biology and
mathematics curricula. This project is jointly supported by the
Biological Sciences directorate, the Education and Human
Resources directorate, and the Office of Multidisciplinary
Activities and the Division of Mathematical Sciences in the
Mathematical and Physical Sciences directorate.